Quark Matter Conference; Lenox, Massachusetts; September 26-30, 1988 (Physics)

This grant provides partial support for the Seventh International Conference on Ultra-Relativistic Nucleus-Nucleus Collisions: QUARK-MATTER 88. The Conference will be held in Lenox, Massachusetts on September 26-30, 1988. The NSF funding will defray participant costs of students and some invited speakers, and in addition will provide for the participation of scientists from India.